Acquisition of Instrumentation for Comprehensive PerformanceSystems

9601684 Mahdavi This project is for equipment at the Center for Building Performance and Diagnostics (CBPD), NSF I/UCRC (Industry- University Cooperative Research Center) at the Carnegie Mellon University (CMU), for measurement instrumentation to enrich and continue significant research in the building science and engineering domain, such as energy consumption, environmental sustainability, economic growth, worker productivity, and public health; involving research, education, and demonstration to make a significant impact on the current approaches and practices both in the building science as well as in the building industry. The equipment will provide for: a weather station, thermal diagnostics, acoustics, visual diagnostics, sensing and control components. and utility distribution models. ***